Group Travel Grant to 1995 IEEE International on Robotics and Automation in Nagoya, Japan

9424386 Klafter This award supports the travel of U.S. delegates for their participation in the IEEE International Conference of Robotics and /automation to be held I Nagoya, japan from May 21 to 27, 1995. The Conference will bring together U.S. and foreign researchers for information exchange, and for identification of challenging research issues related to the areas of robotics, automation, computer-aided-design, computer-integrated-manufacturing and advanced computer technology required in flexible manufacturing. A selection committee is responsible for the choice of participants to receive funds according to a pre-established et of criteria.***